Maximal Use of Information from Macromolecular X-Ray Diffractions

9315840 Phillips Dr. Phillips proposes to develop a strategy for the complete refinement of macromolecular structure and dynamics in crystals by utilizing all of the available X-ray scattering data, namely, the low and high resolution Bragg reflections, but more importantly the diffuse scattering between Bragg peaks. In addition to the average structure then, the result of this expanded refinement will be a picture of the conformational states available to a macromolecule, knowledge indispensable for correlating molecular structure and dynamics with biochemical function. Although generally applicable to any macromolecular crystal, the methods will initially be applied to the oxygen binding protein myoglobin, the nucleic acid transfer RNA, as well as the enzyme aspartate aminotransferase where disorder in the molecule's ligand binding domain can be controlled in crystallum. X-ray diffraction data will be collected on imaging plates, which afford the dynamic range necessary for collecting the weak diffuse scattering signal, and for placing this signal on the same absolute scale as the much more intense Bragg data. Molecular dynamics calculations will play in integral role in the extended refinement of the Bragg and diffuse intensities; thus high performance computing technologies will prove a useful tool. %%% The microscope has always played a role in science, particularly biology. The more detail visible, the deeper our understanding of the mechanics of life. Even the most powerful glass lenses cannot image atoms however. To see what life looks like down at the level of atoms and molecules, X-ray crystallography is used. In this technique, high intensity X-rays are scattered off a sample; then sophisticated computer algorithms are employed to analyze the results, acting as 'mathematical lenses' to form pictures of the arrangement of atoms in the biological structure. X-ray crystallography has had an enormous impact on our understanding of the atomic stru cture of the biological world, from the earliest structure of the genetic code DNA to the structure of enzymes involved in the replication of the AIDS virus. Nevertheless, until now X-ray crystallographic researchers have only analyzed part of the signal from their scattering experiments, namely, the data corresponding to the average, static picture of a biological molecule. Our atomic views of life are consequently motionless at present. Watching a butterfly or a ballerina, however, we all know that what makes living organisms special are their movements. Thus, we propose developing methods to analyze all of the X-ray data, the traditional part due to the average atomic structure as well as the part due to atomic movements. This will lead to dynamic pictures of living processes down at the atomic level. The proposed study, though primarily motivated by questions in biology, will require new understanding in the physics of X-ray scattering as well as substantial high performance computing technologies. The result promise an increased understanding of life at its most fundamental level. ***